Modeling Emission and Particle Acceleration in Magnetars

The research to be conducted centers on the properties of magnetars - a subclass of
neutron stars with magnetic fields of strength in excess of the critical quantum
electrodynamic threshold. Here, a series of projects will be carried out aimed at helping
answer several questions of current scientific interest. Included are: (1) What is the
emission mechanism of magnetars in quiescence? (2) What controls the spectrum of soft
gamma ray repeater (a type of magnetar) flares? (3) How is the energy of activity of
magnetars tapped in their magnetospheres? And (4) physically, how and why are
magnetars different from conventional pulsars? Three general avenues of research will be
undertaken, each with associate subprojects. The first is an investigation of resonant
scattering in shaping the spectrum of anomalous x-ray pulsar spectra by refining
calculations of resonant Compton scattering in ultra strong magnetic fields and the
upscattering of thermal surface photons by magnetospheric electrons. In the second, the
roles of resonant Compton scattering and photon splitting in the burst spectra of soft
gamma-ray repeaters will be explored. This includes developing dispersion and selection
rules for photon splitting in ultra strong magnetic fields. Finally, a generalized formalism
for stochastic, diffusive, gyroresonant acceleration of particles due to magnetic
turbulence superposed upon the global magnetar field structure will be developed. A
major emphasis will be determining the shape of the non-thermal distribution and how
the maximum energy of acceleration couples to environmental parameters, which will in
turn lead to useful observational diagnostics on the emission region.
A graduate student will be employed and trained and will be an integral part of the work.
This student will also be exposed to undergraduate pedagogy by teaching at least two
lectures per year on neutron stars. Undergraduates are expected to contribute as well
through small, well defined tasks. Results of this work will be presented to the public
through outreach activities at local high schools and through the Houston Astronomical
Society.